Enhancements of the Mathematics Components of the 2009 and 2010 Sacnas Conference

This award provides support for the mathematics components of the 2009 and 2010 SACNAS Conference. SACNAS is a national organization with members residing throughout the United States and Puerto Rico. The mission of SACNAS is to encourage Chicano, Latino and Native American students to pursue graduate education and obtain the advanced degrees necessary for research careers and science teaching professions at all levels. The annual national conference is the centerpiece of the SACNAS programs.

Via its national conference SACNAS effectively implements a broad range of ongoing educational, professional, and leadership development supports and service mechanisms for undergraduate, graduate, post-doctoral and junior and mid-career professionals. The conference features career advancement workshops, scientific symposia, exhibits, student presentations, and guest speakers designed to provide the resources Chicano, Latino, Native American, and other postdoctoral, graduate and undergraduate students need to pursue advanced degrees in the sciences. Guest speakers are chosen for their excellence in scientific research and their ability to convey the wonder and importance of science through the presentation of their research results.